Catalysis and Mechanism in Nucleophilic Aromatic Photosubstitution

An investigation of catalysis of homogeneous photochemical reactions and mechanisms of nucleophilic aromatic photosubstitution reactions will be conducted. By the determination of Bronsted Catalysis Law plots, evidence for electron hole transfer catalysis involving hydroxide ion will be obtained. In addition, the structural requirements which govern instances where base catalysis competes with quenching will be defined. The identity of intermediate structures involved in intramolecular photodisplacement of hydrogen on an aromatic ring will be determined, and for the first time the "element effect" on nucleophilic aromatic photosubstitution will be elucidated. %%% This grant from the Organic Dynamics Program will suport research on photoinduced nucleophilic aromatic substitution in the laboratoty of Professor G. G. Wubbels at Washington College. The focus of the research will be to explore the nature of Bronsted Catalysis plots and thereby provide definitive evidence for electron hole catalysis involving hydroxide ion. Elucidation of the structural parameters which govern such processes will lead to the development of more efficient methods for generating substituted aromatic compounds.